Some Problems in Nonparametric Statistics

ABSTRACT

Motivated by today's extraordinary opportunities for computer-intensive statistical analysis, and by the myriad new problems that new data types pose, new statistical techniques are being introduced at an extraordinary pace. Many of them lead directly to novel, nonparametric approaches to data analysis, where
the conception and appreciation, and even the applications, often demand sophisticated and complex theoretical methods. The new, nonparametric techniques involve minimal structural assumptions and use the data in highly adaptive ways.

In this context, the research supported by this grant will address six projects, motivated by potential applications to astronomy, economics, engineering, defence, health science and image analysis. This diversity illustrates the substantial importance and potential, and strategic significance, of nonparametric statistics. The research program will draw together new theoretical methods, a wide range of ideas for developing solutions to diverse practical problems, and the intellectual perception and insight that these attributes will bring.